A Textbook on Engineering Senior Design Projects for the Handicapped

This proposal will provide a soft cover book to disseminate the knowledge and experience gained form the 15 engineering design proposals that have been recommended for funding in the BRAH program. In the future, hundreds of undergraduate engineers will be working on projects that will greatly enhance their own engineering education and provide a great service to the disabled population. Engineering faculty and students will donate their time and talents to provide prototype devices to aid the disabled, and, thus, improve their quality of life and education. This proposal will supply a book documenting these experiences and results so that they may be shared and utilized by others.